Vibration Control of Rotating Plates and Translating Bands

The project investigates three fundamental problems important to machine dynamics and the design of high productivity machines in material processing and computer industries. They are: 1) Vibration of Free Center, High Speed Rotating Circular Plates; 2) Supercritical Speed Rotating Plates; and 3) Vibration of High Speed Bands: Tapes, Drive Belts, and Saws. The free center plate of Problem 1 is positioned along a splined drive spindle by fluid bearings acting on the faces of the plate. It achieves remarkable control over product dimension and dramatically reduces cutting residual. The mechanics of the machine is not known. Observed catastrophic instabilities, gyroscopic precessions, and control of the plate position on the spindle during operation by driving with the bearings are some of the important issues which are addressed. In Problem 2, the supercritical speed rotating circular plate spins at a higher speed than that expected at instability, i.e., the critical speed. Designers of disk drives and circular sawing machines currently set the operating speed to substantially less than the critical speed. The restriction limits the potentially enormous opportunities for increased productivity from high speed on both. The problem must be approached with sufficient precision and depth so that the causes of instability are identified, speed windows for stable operation are observed, and possible technological solutions to the instability problem are evaluated. The translating bands in Problem 3 cut materials, transport people and products, and transmit information. Operation at high speeds with high precision requires understanding of the mechanics of the system and implementation of vibration control. A model of the coupled longitudinal and transverse vibration of a band and wheel system in the absence of dissipation must now be extended to include dissipation. It can be used to predict passive and real-time control for vibration.